Use of Lignins for the Encapsulation of the Gypsy Moth Virus

This multidisciplinary investigation is to develop an economical and efficient ultraviolet absorbing delivery system, based on lignins, for the nucleopolyhedrosis virus (NPV) which is specific to the gypsy moth, Lymantria dispar. Since the NPV is susceptible to ultraviolet radiation, the successful application of this virus to the field is dependent upon the development of an efficient and cost effective delivery system. This system would associate the virus with a protective UV absorber which then could be sprayed onto caterpillar infested trees and forests as desired. The gyspy moth has spread rapidly across the United States and now represents a serious treat to the Nation's forests. The development of the lignin-based delivery system will result in an effective and environmentally safe treatment for controlling this pest. In addition, the potential market for lignins is large since state and federal agencies are planning for the spraying of large tracts of forest and parklands. The market for homes and nurseries is also very significant.